Tyrosine Crosslinking in B. subtilis Spore Coat Morphogenesis

The goal of this project is to advance our understanding of the assembly of the spore coat that surrounds and protects dormant spores of Bacillus subtilis. The investigator has assembled new evidence that oxidative crosslinking of tyrosine residues in the spore coat is a significant element of the process of spore coat morphogenesis. Also, the lab has identified potential substrates for crosslinking among previously cloned genes known to code for proteins comprising the spore coat, and has preliminary evidence that another spore coat protein, CotE, has predicted structural elements which suggest that it might be the enzyme responsible for carrying out this modification in vivo. CotE, expressed in E. coli, possesses the predicted ability to bind heme , consistent with its proposed function as a peroxidase in vivo. The specific goals are to: 1.Quantify the amount of crosslinked tyrosine present in wild type B. Subtilis as a function of time during spore formation and intracellular location. 2. Verify biochemically that CotE is competent to carry out the proposed crosslinking function. 3. Mutationally inactivate CotE and correlate changes in spore coat structure with changes in CotE function to confirm its role in spore coat assembly and modification. %%% Certain bacteria are capable of surviving extreme conditions of heat and cold by producing spores. The coat proteins of these organisms are chemically modified to adapt to environmental stresses. This research will study the enzyme that is responsible for the modification as well as the target protein that it modifies. This research could lead to the production of new biomaterials with altered properties which would be useful in extreme environments.